Computer Science, Engineering and Mathematics Scholarship Program

This project is building on the success of an earlier CSEMS project aimed at enhancing recruitment and retention of talented women, minorities, and first-generation college students in computer science, engineering, and mathematics. The main activities of the project are: building a community of student scholars and faculty that improves academic and social support of talented, financially needy students interested in a STEM major; and preparing students for careers in STEM fields by providing industry mentors and enhanced opportunities for seeking internships and long-term employment. Senior personnel from the Admissions Office and the Office of Financial Aid are working with the Principal Investigator and other faculty to recruit students from across the country to select the best students who meet the mandated criteria for S-STEM scholarships. The students are being supported by a network of mentors consisting of second-year students, graduate student mentors, faculty, and industry representatives. Scholarship recipients meet for weekly Seminars that provide information on University resources, cutting-edge research, industrial internships and job opportunities, and academic and career planning.